Correlated Electron Transport in Mesoscopic Structures

9731756 Glazman Research will be conducted on the theory of correlated electron transport in confined interacting electron systems with an aim to elucidate the role of mesoscopic fluctuations. Work will focus on capacitance fluctuations in quantum dots, mesoscopic fluctuations in double-dot devices, mesoscopic fluctuations in a normal metal grain connected to superconducting leads, and on many body effects and mesoscopic fluctuations in coupled 2D-3D electronic systems that may be realized by vertical tunneling into GaAs heterostructures. The principal investigator plans an analytic approach using various theoretical techniques to investigate mesoscopic fluctuations in these systems; these include methods of bosonization, effective action, renormalization group, as well as diagrammatic techniques. %%% This theoretical research involves understanding quantum mechanical processes and phenomena surrounding the transport of electrons in electronic device-like structures that are constructed on length scales between the atomic and the macroscopic. This work will have immediate impact on the interpretation of existing, and design of new, experiments designed to elucidate the physics of electron transport in mesoscopic devices. The study of these phenomena on mesoscopic and smaller length scales is expected to profoundly influence emerging electronic device technologies of the next century. ***